Equipment for Undergraduate Biological Chemistry Labora- tories for Teaching Gene Expression.

Although the curriculum currently offers lecture courses in Biochemistry, Molecular Genetics, and Cell Physiology, laboratory work is available only in Cell Physiology. Given the tremendous advances in research that are occurring in Biological Chemistry today, this situation leaves Biology and Chemistry majors relatively unprepared for advanced work (including undergraduate research projects) in these areas. This project is remedying the situation by supplying equipment for a Gene Expression Laboratory course in the Biology Department, and for new laboratory exercises associated with the current Biochemistry course in the Chemistry Department. In the former course, students are learning methods for the study of proteins, RNA and DNA at the molecular level. In Biochemistry, a new series of experiments involving enzyme functions, lipid and carbohydrate analyses, and protein purification are being added to the lab. The collective experience of these courses are allowing students to more fully utilize their talents as they prepare for scientific careers.